A Carbon-13 Isotope Analyzer Based on CO Emission Spectroscopy

Isotopic carbon analysis provides a valuable tool for studies of metabolic pathways and for tracing carbon transformations in the environment. The PI proposes to develop an optical technique for the convenient measurement of carbon isotopic (13C/12C) ratios. The instrument will use a linear photodiode array to image the spectra arising from plasm-emission of carbon-containing molecules. Algorithms will be applied to remove spectral interferences and to correct for isotopic ration shifts due to variations in sample pressure and power coupling. Initial work demonstrated that an emission system could be used to determine the 13C/12C ratio in CO2 samples up to a relative precision of 2.5% which could be improved by a factor of 6. Mathematical methods were also evaluated for data processing. Follow-on studies proposed in phase II will involve adapting the emission method for determining 13C/12C ratios for CO2 eluant from a gas chromatograph. System refinements, including the design and testing of an inlet system suitable for sampling at atmospheric pressure, may lead to an automated sample processing system which will be coupled to a carbon-nitrogen analyzer for on-line isotope ratio determinations of both 13C and 15N. Successful accomplishment of the objectives of phase II should result in the development of an inexpensive, reliable alternative to mass spectrometry for the determination of the isotopic ratios of 13C and eventually 15N, and 18O from the same sample. The instrument could be readily used for tracer studies, and with further refinements may be useful for natural abundance analyses, in both medical and environmental fields thereby making isotopic measurements more accessible to a broader range of researchers.